RAPID: The Impact of COVID on Childrens Well-being in 2022: Continued Evidence from the Understanding America Study

The COVID-19 pandemic has been a tremendous disruption to the education of U.S. students and their families, and evidence suggests that this disruption has been unequally felt across households by income and race/ethnicity. While other ongoing data collection efforts focus on understanding this disruption from the perspective of students or educators, less is known about the impact of COVID-19 on children’s prek-12 educational experiences as reported by their parents, especially in STEM subjects. This study will build upon the team's prior research from early in the pandemic. Researchers will continue to collect data from families and aims to understand parents’ perspectives on the educational impacts of COVID-19 by leveraging a nationally representative, longitudinal study, the Understanding America Study (UAS). The study will track educational experiences during the Spring and Summer of 2022 and into the 2022-23 school year. The team will analyze student and family overall and for key demographic groups of interest as schooling during the pandemic continues. This RAPID project allows critically important data to continue to be collected and contribute to continued understanding of the impacts of and responses to the pandemic by American families.

Since March of 2020, the UAS has been tracking the educational impacts of COVID-19 for a nationally representative sample of approximately 1,400 households with preK-12 children. Early results focused on quantifying the digital divide and documenting the receipt of important educational services--like free meals and special education services--after COVID-19 began. This project will support the continued targeted administration of UAS questions to parents about students’ learning experiences and engagement, overall and in STEM subjects. The team will conduct data analysis and disseminate findings and results to key stakeholder groups. Findings will be reported overall and across key demographic groups including ethnicity, disability, urbanicity, and socioeconomic status. This project will also produce targeted research briefs addressing pressing policy questions aimed at supporting intervention strategies in states, districts, and schools moving forward. All cross-sectional and longitudinal UAS data files will be publicly available shortly after conclusion of administration so that other researchers can explore the correlates of, and outcomes associated with, COVID-19.

This RAPID award is made by the DRK-12 program in the Division of Research on Learning. The Discovery Research PreK-12 program (DRK-12) seeks to significantly enhance the learning and teaching of science, technology, engineering and mathematics by preK-12 students and teachers, through the research and development of new innovations and approaches. Projects in the DRK-12 program build on fundamental research in STEM education and prior research and development efforts that provide theoretical and empirical justification for the projects.